NSF/ISE Support of the Research in Learning in Museums Project

9811964 Danvers The Informal Science Education Program of the National Science foundation will provide $320,000 in partial support of "Research in Learning in Museums Project." This will be the NSF contribution to a four federal agency effort to collaboratively support a major research project on learning in museums. As the result of an RFP developed by representatives of the National Endowment for the Arts (NEA), the National Endowment for the Humanities (NEH), and Institute of Museum and Library Services (IMLS), and the National Science Foundation (NSF), an award was made to the Learning Research and Development Center at the University of Pittsburgh. It was agreed by the four agencies that the IMLS would be the coordinating agency of this award since they represent all museum regardless of subject, content, or type of audience.